Plastic Deformation and Lattice-Preferred Orientation in Wadsleyite: Experimental Constraints on the Rheology and Dynamics of Mantle Transition Zone

The transition zone of the Earth's mantle plays a key role in mantle
dynamics. Recent high-resolution seismic tomography shows rich
variety of interaction of convection current with the mantle
transition zone. One of the key data that are needed to understand
the nature of this interaction is the rheological properties of
materials in this layer. However, experimental studies of plastic
deformation are difficult and there has been no quantitative
rheological data on materials in this region. In this project, the
investigators will conduct the first well-controlled quantitative
rheological measurements on wadsleyite, the most abundant mineral in
the shallow transition zone. A newly developed apparatus, RDA
(rotational Drickamer apparatus), will be used in this study.
Deformation experiments will be conducted to large strains to obtain
not only the rheological data but also the relationship between
deformation geometry and seismic anisotropy. The results from this
research will help understand the mechanical coupling between the
upper mantle and the transition zone (that affects the geoid
anomalies associated with mantle convection) as well as the
deformability of slabs in the transition zone and the distribution
and the mechanisms of deep earthquakes. The results on the relation
between the lattice-preferred orientation of wadsleyite and flow
geometry will be the first data set to interpret seismic anisotropy
in terms of flow geometry in this region.